Conference on Mathematical Foundations of Programming Semantics (March 25-28, 190) Pittsburgh, Pennsylvania

This award provides support for the seventh in a series of conferences on mathematical foundations of programming semantics. This research area encompasses research on all aspects of the design and implementation of programming languages, including the semantics of such languages. Topics of interest include type theory, domain theory, and applications of category theory to semantics. Previous conferences have been distinguished by the breadth of interests of the participants and by the high-level of interaction which has taken place between researchers representing the diverse areas mentioned. The conference includes three types of formal activities: 1. invited talks by five leading researchers 2. shorter presentations of refereed, contributed papers 3. special sessions devoted to particular research directions The proceedings of the conference will be published by Springer Verlag as a volume of Lecture Notes in Computer Science, as was the case with the 1st, 3rd and 5th conferences.